U.S.-Japan Joint Seminar: Mitochondrial Biogenesis - Mechanism and Pathobiology/December 1989/Honolulu, HI

This award will support a seminar on "Mitochondrial Biogenesis - Mechanism and Pathobiology," organized by Prof. Roderick A. Capaldi of the University of Oregon and Prof. Takayuki Ozawa of the University of Nagoya, Japan. Participants will meet in Honolulu, Hawaii, December 4-6, 1989 to exchange recent research results and promote future joint research projects. The seminar will deal with the biogenesis of the mitochondria, mitochondrial diseases, and in particular the role of mitochondrial DNA in human diseases. Research in this field has progressed rapidly, but is usually conducted and reported along narrow disciplinary lines. This seminar, on the other hand, will bring together biochemists, geneticists, molecular biologists, and clinicians in an attempt to find common threads, related to mitochondrial genetic variations, in the propagation of a variety of human diseases. This interdisciplinary and international discussion of some of the latest research results in this area could have important implications in medicine.